U.S.-China Cooperative Research (Archaeology): Analytical/Provenance Studies of Prehistoric Chinese Pottery

This cooperative project between George Rapp, University of Minnesota, and Chen Tiemei, Peking University, will analyze potsherds from the Early Bronze Age site of Jingnanshi in the middle reaches of the Yangtze River valley. Using neutron activation, sherds selected by Chinese archaeologists will be analyzed at the University of Wisconsin reactor facility. This analysis will provide quantitative information on interaction spheres of the communities along the river system from the most critical time of development of civilized society in east Asia. Archaeological science in China is in its formative stages. This collaboration will contribute to advancing this science through application of new techniques not yet widely used in China. Through this cooperation, US scientists will also gain access to important archaeological sites, and to future discoveries anticipated in China. Results of this research may shed light on the complex interactions and trade relations in a period of early Chinese civilization dating from the mid- to early second millennium BC.